Few Nucleon Studies Using the Electro-magnetic Probe

A research program in electromagnetic studies of few body systems will be carried out at Bates, SLAC, and CEBAF. Specifically, electron-proton coincidence reactions will be used to probe nucleon momentum distributions and short range 2-nucleon correlations. Development work will be carried out on high power cryogenic gas targets needed for the groups research program. M.S. level graduate students and undergraduate students will be involved in this research program.